Undergraduate Mechanical Engineering Laboratory Improvement.

This project will upgrade the existing undergraduate mechanical engineering laboratories. Modern computer-controlled flow measurement, dynamometer, and pressure and temperature sensors will be integrated into new experiments. These will cover the performance of heat pumps, internal combustion engines and metallurgical and structural components. Automation of a solar collector to determine absorption, heat losses, and collector efficiency is planned.